Sixth International Conference on Seismic Zonation to be held November 12-15, 2000, in Palm Springs, California

CMS-0084452
Tubbesing

This award will provide partial support for the 6th International Conference on Seismic Zonation. Funds will be used to offset administrative expenses for conference organization, venue and the development and publication of the proceedings of the meeting.

The Conference will provide an opportunity to showcase advances in science and engineering. It will provide an additional opportunity to highlight applications in Federal, State, local agencies and the private sector that take advantage of developments in seismic zonation research and technology to mitigate seismic hazards to reduce losses from earthquakes.